A Collaborative Strategy for Curriculum Reform and Faculty Development

Mathematical Sciences (21)

The Department of Mathematics at Arapahoe Community College is undertaking a program intended to make fundamental improvements in areas to better serve students. These include the:

(a) establishment of a state-of-the-art computer classroom;
(b) uniform implementation of computer-based materials in a variety of mathematics courses;
(c) design of laboratory manuals;
(d) technology performance standards and technology performance assessments for each course in the project;
(e) upgrading and expansion of tutorial and laboratory services for math students;
(f) building of a strong partnership with the University of Colorado-Denver; and
(g) provision of opportunities for new methods, course materials, and technologies to the mathematics faculty from area high schools, as well as community colleges and four-year institutions along the Front Range.

In this project, they are adapting and implementing materials used in the Mathematics Education Resource Center at the University of Colorado - Denver, the laboratory manual from the NSF supported "Calculus Institute Using Computer Algebra Systems, and other projects.